Connecting Science/Technology and Teaching Methods

The goal of this proposal is to begin the development of a set of three courses in natural science and technology which emphasize developing scientific literacy in an environment in which good teaching is modeled. Each course is to be accompanied by a one credit seminar on methods of teaching science/technology. These courses/seminar combinations are to be taught both to undergraduates teacher preparation students and to the teachers with whom the teacher education majors will do their field experience and student teaching. One major theme of the university course development is identifying and accommodating science anxious learners. This project, in particular, will develop the first course/seminar pair and conduct the first summer workshop for the experienced teachers that will work with the students. In addition, the project will hold a small conference exploring the adaptability of the planned courses and seminars at other small liberal arts universities that educate teachers. The products of the project will include 8-10 laboratory guides for preservice teachers as well as a detailed course syllabus and seminar syllabus. Student materials will include guides for short projects for use in the seminar and a set of readings for both the course and the seminar. Capital University is contributing 85% of the amount that NSF is contributing to the project.